Symbolic Algebraic Geometry Techniques for Power System Steady State Operation and Control

A reliable, continuous supply of electric energy is essential for the
functioning of today's complex societies. Power blackouts like the
East-coast blackout on August 14, 2004 demonstrate that despite advances
in computing and communication systems, modern deregulated power systems
still experience wide-spread cascading outages. One of the underlying
causes for human and software/algorithmic failure identified for this
blackout is the point-by-point description of a power system operating
state where a change in system load and system topology can not be
analytically expressed but has to be obtained by steady-state system
simulation, the iterative load flow computation. It is the objective of
this project to shift the emphasis and general understanding of steady
state power system operation from a point by point evaluation based on
iterative techniques to a parametric and geometric-analytical
understanding of power system voltage behavior as a function of loading
conditions. The PIs propose to examine the duality of algebraic ideals and
geometric varieties which characterize the loci of the load flow solutions
and the boundaries of the secure operating regions. Since the involved
algebraic operations are tedious and quite evolved, symbolic computational
tools will be used to automate some of the mathematical deductions. In
order to find the roots of polynomials that define the varieties, the PIs
propose to use cylindrical algebraic decomposition techniques. In addition
to developing new insight and new tools for the power industry it is the
PIs desire to inspire and educate a new generation of engineers to venture
into cross-disciplinary areas of Computational Algebra and Power
Engineering in order to solve problems more efficiently.